Micro-Credentials as Evidence of Preparation for Future Learning: An Ideation and Design Workshop

This project will convene a workshop focused on digital micro-credentials, also known as digital badges, and the role they might play in the high-stakes process of college admission. Digital micro-credentials represent one potential mechanism for broadening access for underrepresented groups to higher education. Digital micro-credentials enable students to present a broader view of themselves as learners that connects different domains of their lives: academic, social, and personal interest-driven. As such, digital micro-credentials enable students to represent expertise and potential in ways that go beyond traditional high school grade point averages and standardized test scores. The workshop addresses questions such as: Can micro-credentials serve as valid and reliable measures of learning? What "gap" in current assessment practices can be filled by micro-credentials? What is required for micro-credentials to be useful as evidence of preparation for future learning in the college admission process?

The project's principal investigators will employ case studies, drawn from the Chicago City of Learning network (chicagocityoflearning.org) and Mouse (mouse.org) in New York City, to better understand the use of micro-credentials for learning in STEM-focused extracurricular activities. During the workshop, participants with expertise in student learning from a range of perspectives will design representations of the knowledge or skills demonstrated by students. Participating admissions officers and STEM faculty will critique the designs with respect to how well the designs demonstrate evidence of preparation for future learning by students. The workshop outcomes will include sample designs of micro-credentials that show promise to both promote learning and support college admissions. The workshop will also result in a white paper discussing the potential of micro-credentials for college admission in STEM fields by youth from underrepresented groups.